Modernization of Undergraduate Laboratories in Cell Biology and Biological Instrumentation/Methods

The goal of this project is to update The University of Arkansas-Little Rock's Cellular Biology course, to initiate a Biological Methods and Instrumentation course, and to improve undergraduate student research. The instrumentation being purchased through this award includes a liquid scintillation counter, two high speed centrifugation units, an ultraviolet visible light spectrophotometer, three visible light spectrophotometers, two pH meters, a tissue microcentrifuge, fraction collectors with peristaltic pumps, one refrigerated chromatography chamber, two water baths and four microprocessor units. This equipment is providing students with a more thorough understanding of cellular and sub-cellular biology.